A Planning Strategy For Simulating An Automated Distribution System

9315679 Ebron This planning grant will provide support for planning the development of an object-oriented simulator for automated distribution systems, so that optimal automation strategies can be selected for specific systems. The simulator would integrate load characteristics, feeder configuration, automation strategies, and cost/benefit analyses into one graphics-based simulation package. For purposes of basic research, it will allow general conclusions about automation strategies to be made with respect to feeder type and load characteristics. ***